Collaborative Research: CT-ISG: Accurate Sampling of the Internet for Effective Anomaly Detection

Title: Collaborative Research: CT-ISG: Accurate Sampling of the Internet

for Effective Anomaly Detection

Abstract:

Sampled traffic data has been increasingly used as input for anomaly

detection systems, as the high link speeds make it impossible to

examine each and every packet. This raises an important question of

whether sampling has a (negative) impact on the accuracy/effectiveness

of anomaly detection, and if so how to mitigate this effect.

Intellectual Merit: This project systematically studies the question

mentioned above from the following three angles. First, we will

identify traffic features that are critical for a wide range of

anomaly detection schemes and quantify how much they are distorted by

various sampling schemes. Second, we will design new sampling or

measurement techniques that preserve enough accuracy to support

effective anomaly detection, while being cost-effective and

light-weight. Third, we will study how to correlate the NetFlow

samples obtained at the edge routers with the information-rich data

generated using existing data streaming algorithms, for much better

anomaly detection than pure sampling. The new scientific knowledge

learned through this research will provide us with much better

technologies to monitor large high-speed networks for anomalous

behaviors.

Broader impact: The results will be broadly disseminated through

publications, invited talks and tutorials, and open-sourcing of

software developed for this project. The PIs' collaboration with

tier-1 ISP's will facilitate the transfer of technology from research

environment to actual managing of production networks. Research

results will be incorporated into information security curriculum.

Both PIs have been actively engaging under-represented groups in

research and higher education and will continue and expand these

efforts.